U.S.-France Cooperative Research: Nonlinear Optics and Laser Dynamics

0003636
Agrawal

This three-year award for U.S.-France cooperative research involves Govind P. Agrawal and Robert W. Boyd of the Institute of Optics, University of Rochester and Albert Le Floch and his group at the Universite de Rennes in Rennes, France. The investigators will cooperate on several topics, all related to nonlinear optics, nonlinear dynamics, and lasers, including nonlinear effects in fiber lasers, nonlinear dynamics of coupled optical systems and nonlinear optical cavities. The US group brings to this collaboration expertise in theory. This is complemented by experimental expertise of the French group.

This award represents the US side of a joint proposal to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses for the US investigators, graduate and undergraduate students. The CNRS will support the visits of French researchers to the United States. The collaboration will advance fundamental understanding of the physical processes that determine nonlinear materials, dynamics of optical systems, and effects in fiber lasers.